Condition Evaluation of Concrete Structures Using High-Frequency Ultrasound

This project will investigate the feasibility of using high frequency ultra-sound techniques to determine flaws, rebars, and strength of concrete. The results and techniques will be useful to determine the condition of existing concrete structures.